Bidirectional Load Effects on Seismic Resistance of Flat- Plate Construction

Integrated experimental and analytical research is required to develop an understanding of the effects of realistic, bidirectional seismic loadings on the resistance of reinforced concrete flat-plate construction. To accomplish this objective, six interior plate-column assemblies are fabricated and subjected to either unidirectional or bidirectional reversed lateral loadings in the elastic and inelastic ranges in this project. Three of the assemblies are subjected to relatively simple, predetermined displacement histories so that mechanics of connection behavior under bidirectional loadings can be studied. The remaining three connections are loaded using the pseudodynamic test method, for which the displacement history is determined for a particular base motion based on the dynamic equations of equilibrium and the measured load-displacement characteristics of the connections. The latter tests will provide insights into the effects of bidirectional inelastic behavior on the response to two orthogonal directions of base motion. Analytical studies are conducted to provide improved insights into the mechanics of bidirectional connection behavior and into the effects of bidirectional base motions on overall structural performance.